Doctoral Dissertation Research: The Linkages Between Tourism and Agriculture in Quintana Roo, Mexico

Torres, Rebecca U. of California, Davis This doctoral dissertation research will examine the relationship between tourism and agriculture in Cancun, Mexico. The area accounts for 28 percent of Mexico's tourism and a high proportion of Quintana Roo state's domestic product. Nearly all Cancun's food requirements must be imported and thus the situation is an ideal one in which to examine why predicted linkages between agriculture and tourism have failed to develop. The research will seek to answer the question by analyzing product flows, infrastructure investments and tourist visits. A tourist typology with respect to food demand and satisfaction will be developed from interviews with tourists, managers, and operators. In addition farm households will be surveyed to determine linkages, local knowledge of tourism industry demand, as well as, factors affecting response to expressed tourism demand. The research captures the need for more integrated studies which examine the primary elements of demand, supply, and distribution that determine the linkages between agriculture and tourism.